Efficient Simulation of Multicomputer Programs

Given a multicomputer program, its input and target architecture, we want to predict the synchronization strategy resulting in the fastest simulation of the program. Simulators are often present in environments facilitating parallel program design. In addition, they are used to compare the performance of different parallel architectures on a given program. In both instances, speeding up the simulator's execution decreases development time of parallel programs. The major emphasis of this research is on comparing different synchronization strategies for multicomputer simulations. The project will proceed in two stages. First, a simple multicomputer simulation paradigm having a few communication primitives and a simple timing model will be used. Methods for predicting the execution times for this paradigm using both analytical and empirical techniques will be developed. Together with sequential simulation, a variety of parallel synchronization strategies, such as synchronous, time-driven, asynchronous, and hybrid strategies will be considered. Second, more complex multicomputer simulators, including additional communication primitives and more complex timing models will be investigated.